Isomerization Polymerizations of Allyl Ethers and Related Monomers

9628664 Crivello A novel metal catalyzed isomerization/polymerization reaction has been developed in which readily available and inexpensive allyl ethers and related compounds can be readily and efficiently polymerized to give high molecular weight polymers. Depending on the specific metal complex selected, polymerization can be spontaneous and highly exothermic, or require heat or light activation. The polymerization of simple allyl, crotyl and cyclic and acyclic vinyl acetals has been demonstrated. Typical examples of these monomers will be polymerized and the effects of the structures of the metal carbonyl, the silane and the monomers on the rate of polymerization and the molecular weight of the resulting polymers will be determined. The progress of the polymerizations and their rates will be followed using NMR, GPC and FT-IR methods. Further, the structures, tacticities, glass transition temperatures and, where appropriate, mechanical and thermal properties of the resulting polymers will be fully characterized. Multifunctional monomers and oligomers bearing pendant and terminal allyl and crotyl ethers will be prepared and characterized, then polymerized using the optimized catalysts and reaction conditions. Similarly, monomers bearing various functional groups including esters, alcohols, carbonates, ethers, urethanes and amides will also be prepared and their polymerizations using these novel catalyst systems carried out. %%% One of the major aims of this project is to elucidate the mechanism(s) of the isomerization/polymerizations . Accordingly, where possible, the synthesis of appropriate organometallic intermediates will be carried out and their involvement in the polymerizations be determined. Based on these studies, novel and more efficient thermal and photochemically activated catalyst systems will be designed and employed. Lastly, the application of this chemistry to the preparation of linear and crosslinked polymers of potential practica l and commerical interest will be addressed. Attempts will be made to prepare and characterize films and castings of polymerized allyl ethers. ***